Geometric Harmonic Analysis

Diffusion (or inference) geometries , provide tools for organization of
massive digital data sets. Like differential calculus, they are used to
build global inference relations between objects by combining
``infinitesimal" (linear) models. Harmonic analysis on such structures
leads to multiscale folder building paradigms leading to powerful tools
for functional regression and analysis of massive complex data.
These geometric methods provide new insights in classical differential
geometry enabling explicit embedding theorems and coordinate systems for
Riemannian manifolds.

The multiscale analytic methods lead to a systematic analysis tool for
seemingly unstructured data bases, and enables the automatic generation
of Ontologies and data induced languages. These methods are broadly
applicable in medical diagnostics, in the organization and analysis of
psychological questionnaires, as well as in all aspects of machine
learning from data mining to machine vision.